MATE - Monterey Advanced Technology Education - Center - Planning Grant

Project Monterey Advanced Technology Education (MATE) is uniting educational institutions (grades 9-16-university) and cooperating science-related agencies in a consortium to design a marine, environmental, and global change ATE Center at Monterey Bay, CA. The goal of providing better educated science and engineering technicians is made possible through the proposed alliance of local institutions and scientific agencies that surround Monterey Bay. These human and technological resources, aligned with the unique bioresources of Monterey Bay, provide for the development of an articulated, technologically enhanced and thematic environmental science education program including curriculum, instructional strategies, and products serving as a model for replication and national dissemination. Project MATE is providing for a program formulation session in order to identify courses, products, technology, and resources to be merged, aligned, designed, and developed for the planned ATE Center. MATE is producing a blueprint for systemic change relative to the new articulated curriculum and instruction utilizing the resources of the environment, scientific, industrial and business communities of the Monterey Bay area. This project is planning to implement a nationwide model for a technologically enhanced and articulated marine, environmental and global change science instructional program that will produce science and engineering professionals.